RUI: Oceanographic Instrumentation for Detailed Study of Copper and Cobalt Transport and Behavior in Marine Waters and Estuaries

The Institute for Coastal and Marine Resources at East Carolina University will acquire components for assembling a modern flow-injection analyzer for precision analysis of copper and cobalt. These heavy metals have been proven to be effective tracers for measuring the transport of sediments from rivers, across estuaries, and into the sea. They are also useful in studying the flux of materials between the water-sediment interface. Understanding these exchange processes has bearing on ecological and geological investigations. Cobalt and copper concentrations will be measured using analytical methods newly developed for making seawater analyses. The techniques involve chemoluminescence detection of metal-catalyzed reactions using flow injection analysis. These new methods provide greater sensitivity and productivity than earlier methods. The instrumentation will provide a new capability for studying the behavior of copper and cobalt in natural waters.